Topology of Algebraic Varieties

DMS-010
Anatoly S. Libgober

Concrete issues proposed in this project are the study
of 2-variable elliptic genus and chiral deRham complex
for non-singular and singular varieties,
mathematical foundations of the second quantized elliptic
genus and orbifold elliptic genus,
ODE and PDE appearing in mirror symmetry, the Chern
classes of mirrors and the topology of the
complements as well as the study of the fundamental groups
of the complements.

The goal of this project is to analyze from
mathematical point of view several methods and
techniques which were used in theoretical physics,
more precisely in string theory. Such mathematical
investigation should lead to new results in
the physical theories involved and produce a
broader understanding of the reasons of effectiveness
of the methods used by physicists.
Particular problems which we are planning to solve
are motivated by dualities in string theory
and more specifically by mirror correspondence.
One of the problems is to find new properties
of mirror correspondence and its characterization.
This involved the study in topology, algebraic geometry
and differential equations.